Teaching Reflectively: Extending and Sustaining Use of Reforms in Mathematics Classrooms

9817737
Coleman

The Madison School District is planning and testing strategies to help teachers implement a standards-based curriculum. Pilot testing of Investigations in Data, Number, and Space at the elementary school level and Connected Mathematics at the middle-school level continues for teacher leaders. Plans are developed for including all teachers in making a transition from a traditional curriculum to a standards-based approach based on the materials being piloted. Issues being addressed in the planning phase include implementation, professional development, and uses of available resources such as Title I and Eisenhower funds.